Demonstration of Entanglement in Coupled Josephson-Junction Qubits

EIA-0323261
F. C. Wellstood
University of Maryland College Park

Demonstration of Entanglement in Coupled Josephson-Junction Qubits

This project is a first step toward a scalable solid-state quantum computer with implications for cryptography, national security, and scientific computing. Under this project, the energy levels, coherence times, state manipulation, gate operations, and quantum behavior of systems composed of current-biased Josephson junctions are being examined both examining experimentally and theoretically. Building upon prior spectroscopic studies of two capacitively coupled qubits, the entanglement of two or more qubits, not only coupled capacitively but also coupled by means of switchable active elements are being investigated. Switchable coupling may be crucial for the gate operations of a quantum computer with its large number of qubits. Theoretical analysis is aiding in designing experiments and interpreting results. This project supports training of graduate and undergraduate students and provides opportunities for women, minorities, and high-school students to participate.